Instrumentation and Laboratory Improvement Program

9450921 Shaw Rio Salado Community College has purchased microcomputer hardware and software to enhance faculty and student support in Science and Math courses through the use of microcomputer-based laboratory teaching and learning systems. Serving primarily female (64 %), single-headed-of-households, and by utilizing a multi-disciplinary, integrated curriculum model which allows Science and Math students access to experiments which do not currently exist due to space and funding limitations, Rio Salado improves the chances of such students continuing their education in Science and Math and provides a continuing educational experience outside the "traditional" classroom site through modemed instruction and tutoring during "non-classroom" hours. Rio Salado assists science students through computer-aided classroom instruction and interactive computer laboratory simulations utilizing existing software packages and electronic networks.